Atmospheric Oxygen Variability in Relation to Annual to Decadal Variations in Terrestrial and Marine Ecosystems

9612518 Keeling In this project, measurements of the concentration of molecular oxygen and carbon dioxide in air samples will be continued. The samples are collected at a series of baseline sites around the world. The data will lead to improved estimates of the net exchange of carbon dioxide with land biota and the oceans, of marine photosynthesis rates, and of atmospheric mixing rates. These results are needed to improve our understanding of the processes regulating the buildup of carbon dioxide in the atmosphere, and of the processes regulating marine and terrestrial ecological functions in relation to various agents of change, especially climatic changes. In support of the measurement program, absolute standards for oxygen in air will be developed in order to ensure stable long-term calibration. A survey of the oxidative oxygen/carbon ratios of terrestrial and marine organic carbon will be conducted, in order to improve the quantitative basis for linking the oxygen and carbon dioxide geochemical cycles. ***